High-Resolution Low Temperature SEM

Funds are requested for a high-resolution low-temperature scanning electron microscope. The instrument isan Hitachi S5000 scanning electron microscope with cryosystem, backscattered electron detector, digital image system, and is matrixed for remote operation. With low-temperature microscopy the sample is held at liquid nitrogen temperature during examination, allowing water to be preserved for imaging in the frozen hydrated state and the surface and interior of cells to be analyzed without the need for chemical fixation, dehydration or drying.